Research Experiences for Undergraduates in Chemistry at the City University of New York - Staten Island

This Chemistry Division award supports a new Research Experiences for Undergraduates (REU) site at City University of New York, College of Staten Island. Ruth Stark is the site's Program Director; James Batteas is the Co-Program Director. Ten faculty will be available to serve as REU student mentors. During the award period (2001-2003), each summer ten students will participate in a ten-week program. Recruitment efforts will extend nationally in order to attract a diverse group of students. The research focus will be on both synthetic and natural polymers--their synthesis, characterization, and physical properties. Other activities planned for the student participants include workshops on the chemical literature, technical writing, and giving a scientific talk. Seminars and field trips are also planned. Student participants will conclude the program with a poster presentation at a local symposium. A final written research report is also required. Evaluation of the program will include self-assessment, benchmarking, and a formal external review.